SGER: New Approaches to the Design of Fixed Order Controllers

Control theory is at a eculiar crossroad.Much of the elegant theory developed over the last 43 years has
run its course and now appeals to a dwindling number of academics,while it has generated little interest
from industry and is mostly irrelevant for engineering design.On the other hand the real design roblems
faced by control engineers remain unresearched,lack theoretical foundation,are of a fundamental nature
and theoretically extremely challenging,and there is a crying need for analytical and computer aided
design ap roaches.Our roposal attem ts to address this gap and to work towards its resolution.
The exploratory research described here deals with the develo ment of new approaches to the design of
.xed order and structure controllers.The need for this research stems from the following:a)The o timal
control theory developed intensively since 1960 by control theorists result in high order controllers that
are model-based and the theory cannot handle the constraint of .xed order,which is ever present in
industrial applications;this makes modern theory inapplicable to even such widely used controllers as
PID and lead/lag,for instance.b)O timal and high order controllers can have severe structural and
sensitivity roblems as shown dramatically in the 1997 paper "Robust,Fragile or Optimal?"h(IEEE T-AC
August 1997)by Keel and Bhattacharyya.This a er showed that controllers designed by H2,H ",l1
and techniques could be acutely sensitive to erturbations in the controller coe .cients rendering them
unusable.Since then no systematic solution to the fragility roblem has emerged despite signi .cant
activity in this area.c)An important need in practical design roblems is to have sets of feasible
solutions meeting various objectives such as stability,robustness,time-delay tolerance etc so that design
tradeo .s can be intelligently compared.The resent theory of .xed order controllers is far from answering
such questions-indeed it cannot in most cases determine if even nominal stabilization is ossible at all.
With the above background as motivation our roposed research sets out to explore some new ap-
proaches to solve the .xed order controller design roblem.The .rst step in this,necessarily,is the
determination of the stabilizing set.This is a di .cult and longstanding unsolved roblem in control
theory.We have recently obtained a breakthrough in two s ecial cases.Speci .cally we obtained a mixed
analytical/com utational solution to the roblem of determining whether a .rst order or PID controller
can stabilize a given lant.Our solution can determine the complete set of stabilizing controllers and
shows that this set is not convex or even connected.In view of this it is not clear how erformance
constraints can be e .ectively imposed.Moreover the solution technique used by us in these cases does
not seem to extend to the general case.
We intend to explore two approaches for the general case.The .rst will be an attempt to approximate
the .xed order controller stabilizing sets,which are disconnected in general,through unions of convex
sets.We will explore the use of the interlacing conditions for stability to generate these and it appears
ossible that we can get a good and tight approximation to the stabilizing sets as unions of convex
sets.This can open the door to the im osition of erformance constraints and their satisfaction through
computationally tractable methods such as linear rogramming and convex optimization,despite the
complicated to ology of the stabilizing sets.The second approach that we intend to explore is the
use of a hybrid Nyquist/D-Decomposition technique that we have found to be useful in simple cases.
This method has the additional otential advantage that it may be ossible to determine stabilizing sets
from frequency domain data only thus making the design based exclusively on experimental data and
essentially "gmodel-free "h.In this setting achieving robustness of the design to the data should also be
develo ed.
In summary the exploratory research pro osed here addresses the design of fixed but arbitrary or-
der,robust,non-fragile controllers based on classical as well as modern erformance criteria.This is a
longstanding and di .cult open control roblem.Nevertheless it needs to be solved in general for the
theory and ractice of the .eld to rogress.In the roposal we describe some seemingly romising new
approaches which are signi .cant departures from the optimization and model based approaches that
dominate the .eld at resent.We intend to explore how far these approaches can be develo ed into
design e .ective rocedures.We believe that such procedures will bene .t control engineering ractice as
well as academic research and hel close the looming theory-practice gap in our .eld.